Organic Thin Films Gordon Research Conference; Newport, RI; July 11-15, 1999

9978544
Galvin

The Gordon Research Conference on "Organic Thin Films" will be held on July 11th-15th, 1999 in Newport, RI. The goal of the conference is to facilitate interactions and information exchange among researchers with interests in polymers for biosensors and electroactive displays. The NSF funds will be used to support the attendance of young American students.

There are emerging opportunities related to the design, synthesis, characterization and evaluation of organic thin films for biosensors and displays, critical technologies for United States industries.